Hormonal Control of Sex Differences in Brain and Behavior

The neural system controlling avian song has proved a powerful model for elucidating hormonal influence on neural organization and behavior. Song is an androgen-dependent behavior produced predominately in males. Sex differences in song behavior are mirrored in the anatomy of brain regions that control song. Neuron size and number, androgen binding activity, and the projections of song-related brain regions are all much greater in males than in females. The striking anatomical dimorphisms result from differences in exposure to gonadal steroids during development. Dr. Nordeen will use sophisticated anatomical techniques to examine how gonadal steroids act on developing song regions during the first few weeks after hatching. He will determine how hormones regulate the production, migration and/or survival of neurons within these specific brain nuclei. These experiments will provide insights into the cellular mechanisms of sexual differentiation. Possibly the most exciting contribution resulting from work on this model system is the recognition of the plasticity of the brain during development and in adulthood. A major outcome of these studies will be to increase our understanding of those mechanisms that permit aspects of neural plasticity and thus, may eventually prove important in developing treatments for enhancing the recovery of function in humans that have been incapacitated by accidents or strokes.